Innovations in Biomaterials

This award provides funding to Clemson University for the support of a three-year, REU Site entitled "Innovations in Biomaterials," under the direction of Dr. Karen J. Burg. This ten-week summer program will involve eight students annually in cutting edge research in areas including stem cell technology and cell-based biosensors, working closely with two faculty mentors and one graduate student mentor. A broad mix of students, including women and under-represented minorities, from other institutions without bioengineering programs will be recruited for the program. Students will also participate in a series of lectures and workshops involving critical issues and topics in bioengineering.